Doctoral Dissertation Research: Framing the Picture, Racial Profiling and the Public Discourse

This dissertation investigates the rise of racial profiling as a political issue in the civil rights movement. The history is seen as an instance of how groups use cultural tools in political conflict. The results will demonstrate that politics are profoundly cultural and culture is often profoundly political. The research analyzes the cultural framing process in public discourse through a systematic content analysis of newspapers, TV news, legislation, legal arguments, and judicial decisions. Interviews with key leaders will help reveal how deliberate cultural strategies were developed to mobilize opposition to racial profiling.